Westnet Networking Project

9322392 Burns This award provides for extending WESTNET's service to less populated areas and non-traditional users, enhancing the network's technical services capability, improving user support, and testing new routing equipment. The award provides partial support of these endeavors for one year.